RUI: A Parametric Investigation into the Existence of an Economic Monetary Aggregate

This project belongs to the field of macroeconomics, the study of the behavior of economic aggregates such as employment, inflation and economic growth. The objective of the project is to perform parametric tests for the existence of an economic monetary aggregate consistent with economic theory. Minflex Laurent and generalized Barnett models of consumer demand are estimated for monetary assets, goods consumption and leisure. Statistical tests are performed against the null hypothesis that different groups of monetary assets are weakly separable from other consumption goods. A broad range of monetary assets are analyzed empirically, stretching from currency and checking accounts to small time deposits in credit unions. The results are used to identify groups of monetary assets that are weakly separable from other goods and can be aggregated into an economic monetary aggregate. Monetary policy is now pretty much hit-or-miss on account of our inability to get a fix on the demand for money. A significant part of the problem is the establishment of an appropriate measure of money. The official simple sum monetary aggregates require the untenable maintained assumption that the summed monetary assets are perfect substitutes for one another. This project provides new evidence on the elasticity of substitution among different monetary assets and develops a measure of a monetary aggregate that is better for formulating monetary policy than the official measure.